ITWF: Girls are IT!

EIA-0204398
Lambert,Katherine
Songer,Tim
Institution: Girl Scouts Hornets' Nest Council

Title: Girls Are IT!

The Girl Scouts, Hornets' Nest Council has been extremely active in
the lives of adolescent girls in the Charlotte regional community for
over 65 years. In the 21st century, this involves reaching out to
widely diverse populations including recent immigrants from Asia,
Latin America, Africa and Eastern Europe. The success of these
outreach programs depends on understanding the language and culture
of the families in these communities and providing activities,
support, and education that is deemed appropriate and relevant for
all of the girls and adults involved.

Girls all over the country are faced with a range of opportunities
that were not available to previous generations. Part of the Girl
Scout mission is to help "girls gain insight into coping with
contemporary moral and social dilemmas." Through a series of
Girl-Scout-sponsored series of innovative and engaging programs,
girls learn about preventing teen pregnancy, avoiding substance
abuse, and understanding the influence of popular culture on creating
faulty self-images regarding one's body and mind.

With support from ITWF, the Hornets' Nest Council will deliver this
content in a new and innovative way - through a custom
technology-based simulation entitled, "Making Choices." "Making
Choices" will use a variety of technologies including wireless
networked laptop computers, Personal Digital Assistants (PDAs),
printers, scanner and digital cameras to deliver a series of
simulation activities (totaling 3-5 hours of instructions). A
research evaluation study will assess attitudes of girls and women
volunteers who participate in the standard programs versus the
technology-based programs.